GOALI: Transport Phenomena of High Pressure Gas - Liquid - Solid Fluidization

CTS-9906591
L.-S. Fan, Ohio State University

Microscopic phenomena in three-phase fluidization systems will be investigated at high pressures (up to 21 MPa) and high temperatures (up to 200 degrees C). The fluidization and visualization laboratory facility was developed in the previous NSF sponsored project. Initial bubble formation, jetting, and breakup will be visualized and mechanistically modeled. The effects of particle inertia, bubble instability, heat transfer, pressure and temperature will be included in a microscopic model. Macroscopic modeling of mixture flow in high-pressure slurry bubble columns will be performed including critical gas velocity for particle suspension and gas holdup. An attempt will be made to generalize the results for various properties of the gas, liquid and solid phases. This is GOALI project performed in collaboration between the Ohio State University and a network of four companies: Shell, Texaco Oil, Exxon R&D, and Hydrocarbon Research Inc. The industrial partners will contribute to the research with personnel, design of parts of the experimental facility and feedback from large-scale experiments.
If successful, the project will provide fundamental research data for high pressure/high temperature three-phase fluidization systems, with immediate relevance to petrochemical industry and specifically on methanol synthesis, benzene hydrogenation and resin hydrotreating.